Workshop on Exclusive Reactions at High Momentum Transfer

Funds from this award will enable young scholars to attend a
workshop entitled, "Exclusive Reactions at High Momentum Transfer,"
to be held at Jefferson Laboratory (Newport News, VA) May 15-18,
2002. This workshop will bring together both experimental and
theoretical practitioners of this filed both to stimulate
cooperative activity and to raise community awareness of the
vitality of this field. Among the subjects covered by this workshop
are: wide-angle Compton scattering, large-t meson photo and
electroproduction, baryon elastic and transition form factors, and
high-t deuteron photoproduction.